Algebraic Algorithms

The project will investigate the area of algebraic algorithms for symbolic computation. Specifically, it will continue work on algebraic simplication. This research will be on denesting nested radicals, and the computation for Galois groups. The project will also study the relationship between polynomials and integers. In the latter areas, the project will investigate such questions as: When do lower and upper bounds translate from one domain to the other? The project will also attempt to develop theory of symbolic computation for floating point polynomials.